A Diode-Laser Experiments Workshop

Calvin College's Physics Department offers a one-week Diode- Laser Experiments Workshop in the summer of 1993 to physicists and chemists who wish to introduce diode-laser demonstrations and experiments in their teaching of undergraduates. Participants see a variety of experiments including high- resolution spectroscopy, the Zeeman effect, saturated absorption, optical frequency doubling, the optogalvanic effect, optical heterodyning, and Rydberg-state spectroscopy. Emphasis is on training, skills, and supports that will make these experiments replicable at participants' home institutions.